CAREER: Forecasting Chemical Weather with a Coupled Meteorology-Chemistry Model System: Research and Education Challenges

This project will enhance and further develop an existing community air quality model to produce a truly integrated weather-chemistry model capable of better forecasting the abundance and transport of particulate matter (PM) in the atmosphere. The P.I. will initially further develop the Model of Aerosol Dynamics, Reaction, Ionization and Dissolution (MADRID) to improve how aerosols are treated in a real atmosphere. These improvements will be combined with an existing cloud chemistry model and both incorporated into NOAA's Weather Research and Forecast (WRF) Air Quality prediction system version 1 (WRFAQV1) model, followed by a series of evaluations of model performance with a view to producing an operational version for ozone and PM forecasts. Forecasting air quality (or "Chemical Weather") is an emerging area of research interest crossing disciplinary boundaries within the atmospheric science community, and this research has far reaching implications for human exposure, health and regulatory policy. The broader science impacts of this study lie in making substantive and necessary contributions to improving tools required for more reliable predictions of air quality in the future. The P.I. will integrate this research into a number of education and outreach activities. The project will contribute substantively to the professional development of an early career female faculty at a major State research and teaching university, support research training and higher education of two graduate students and provide a number of summer undergraduate internships in collaboration with two industry partners. The education plan also includes opportunities for course development, student participation in research, and public outreach.